Workshop: Senseval-3 - Evaluation of Systems for the Semantic Analysis of Text; July 25-26, 2004; Barcelona, Spain

This award to subsidize travel, conference, and housing expenses for students participating in the Senseval-3 workshop, held in conjunction with the Association for Computational Linguistics (ACL) meeting on July 25-26, 2004, in Barcelona, Spain. ACL is the primary international organization for researchers in the field of computational linguistics, and Senseval is a major event and international meeting for the ACL Special Interest Group on the Lexicon (ACL-SIGLEX).

The main purpose of Senseval-3 is to analyze and discuss the results of systems participating in the Senseval-3 evaluations, held in March-April 2004. Fourteen different tasks are organized part of Senseval-3, to conduct evaluations of systems that perform automatic semantic analysis of text, including: word sense disambiguation for various languages, identification of semantic roles, logic forms, multilingual annotations, subcategorization acquisition. The participating students will be supported to participate in this international evaluation exercise for their systems and have the potential to gain invaluable feedback from the senior participants.